CISE Research Infrastructure: A Shared Distributed Facility for Multimedia Signal Processing and Visualization with Applications to Human Computer Intelligent Interaction

9624396 Huang A Shared distributed Facility for Multimedia Signal Processing and Visualization with Applications to Human Computer Intelligent Interaction. This Infrastructure award supports the acquisition of computational, networking, and human interface equipment for multimedia laboratory for the investigation of human centered information systems. The facility will connect three institutes: the Beckman Institute for Advanced Science and Technology; the Coordinated Science Laboratory; and the Digital Computer Laboratory. The research supported by this laboratory will include research in multimodal human computer interaction, multimodal imaging and visualization, multiresolution representation and processing, and multimedia storage, networking, and communication.